Biochemical Studies of Protein Methylatin

The purpose of this award is to elucidate the structure- function relationships of the S. typhimurium CheR S- adenosylmethionine:glutamyl methyltransferase, an enzyme that is essential for the regulation of the membrane receptor proteins involved in chemotaxis. An efficient CheR expression vector will be constructed so the enzyme can be over-produced and large amounts of it purified. Efforts will be made to obtain good quality crystals in order to determine the structure of the protein X-ray analysis. Attempts will be made to determine the identities of the amino acids that constitute the S-adenosyl- methionine binding site. Modification reagents and inhibitors will be used to label active site resides which can then be examined using established methods of biochemical analysis. The proposed research will help us understand how cells respond to chemical stimuli. It may also develop specific inhibitors which may be useful in controlling gene expression and cell growth.